(SGER) Collaborative Research for Sptial Technology Applications and Training

*** 9711325 Blackwell REC 9711325 (SGER) Institution: U.S. Space and Rocket Center Proposer: Tommie R. Blackwell Title: "Collaborative Research for Spatial Technology Applications and Training" Amount: $100,000 This is an SGER proposal for exploratory research on the educational applications of spatial technologies with the specific purpose of creating a model of teaching,learning, and outreach.This model is intended to assist the proposer in developing a future (not included in this proposal) educational demonstration project in spatial technologies. The project will be overseen by the proposing institution in conjunction with Auburn University, NASA Marshall, NASA Global Hydrology and Climate Center, and the Huntsville Botanical Gardens. SRI International has been subcontracted to perform much of the exploratory research encompassed in this stage of the project.